Research Experiences for Undergraduates in Chemistry at the University of Washington

Professor Darrell J. Woodman and other members of the Chemistry Department at the University of Washington are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend nine (9) weeks each summer actively engaged in a variety of research projects. Projects range from use of two-dimensional NMR spectroscopy to investigate the dymamics of biological species to study of the sterochemistry of a methylation reaction. Cooperative arrangements will be made with faculty members from neighboring institutions so that students may continue their work after they return to their home institution. Students will present a seminar on their progress at the end of the summer.